Anisotropic Thermal Conductivity in Shear Deformations of Polymer Melts

Abstract for Venerus' project

0075789

Anisotropic Thermal Conduction in Deforming Polymers

Flow-induced orientation of polymeric molecules results in anisotropic
mechanical, optical and thermal properties and has profound effects on
material properties. The objective of this study is to obtain
quantitative, time-dependent measurements of the thermal diffusivity tensor
in deforming polymer liquids. These measurements will be made using a
non-invasive optical technique known as Forced Rayleigh Scattering.
Experiments will be conducted on several polymer melts in step-shear
strain and cessation of steady shear rate flows. Measured components of
the thermal diffusivity tensor will used in conjunction with mechanical
(stress) and optical (birefringence) data to evaluate the stress-thermal
rule.

Understanding the connection between the flow-induced orientation that
occurs during processing of polymers and their end-use physical properties
is essential. The thermal diffusivity tensor measurements obtained in this
study will significantly enhance efforts to formulate physically-meaningful
process flow models that can be used for the development of advanced
processing technologies and applications.